Photosensitized Energy and Electron Transfer Reactions in Surfactant Bilayers on Colloidal Inorganic Supports

This award is made in the Special Projects Office of the Chemistry Division under the Materials Synthesis and Processing Initiative. Surfactant bilayers supported on colloidal particles will be developed as a new medium for photochemical energy conversion. Vectorial energy and electron transfer reactions within the bilayer will be initiated by aromatic hydrocarbons promoted to their triplet state either by direct photoexcitation or by sensitization with Ru(II)polypyridine complexes. The inorganic supports will be based on silica and/or alumina. These supports will be activated for participation in the bilayer-mediated photoevents by the incorporation of photosensitizers or redox-active metal ions into the inorganic oxide matrix. Laser flash photolysis will be used to determine relevant spectral, kinetic, and thermodynamic parameters for the desired chain of events resulting in either triplet energy migration or charge separation across the supported bilayer membranes. %%% This project is expected to contribute to a fundamental understanding of membrane-mediated energy conversion processes, and ultimately to the design of molecular devices that capture light and store it by chemical means as fuel.